Collaborative Research: Center for Advanced Forestry Systems Phase II

PROGRAM DIRECTOR'S RECOMMENDATION

IIP 1238324
North Carolina State University
Goldfarb

IIP 1238265
Virginia Tech
Fox

IIP 1238305
Oregon State University
Howe

IIP 1238319
Purdue University
Michler

This proposal seeks funding for a second five-year term (Phase II) of the NSF Industry/University Cooperative Research Center for Advanced Forestry Systems (CAFS) sites including the North Carolina State University (lead), Virginia Tech, Oregon State University and Purdue University. The collaborative research conducted under the CAFS umbrella focuses on optimizing genetic and cultural systems to produce high-quality raw materials for new and existing forest products industries.

Over the past 50 years, much forestry research has taken place in university-based, industry-supported, cooperative research programs. These "coops" continue be extraordinarily successful at achieving research and technological advances on topics of great relevance to the forest industry. However, the ability to focus on specific disciplinary topics in response to industrial guidance is also a limitation. Many of the problems and opportunities facing forestry today, bridge disciplinary and regional boundaries. For technological advances to be made, it is necessary to approach research questions on multiple spatial and temporal scales, including the molecular, cellular, individual-tree, stand, and ecosystem levels. The proposed Center (CAFS) has been successful at providing the administrative structure and funding that has allowed scientists from these existing cooperatives to initiate much need cross-disciplinary research in areas of genetics, site manipulation, and growth and yield modeling. The proposal presents a plan for the 2nd five-year phase for the four original university CAFS sites, North Carolina State, Oregon State, Purdue, and Virginia Tech. This proposal also serves as a research and administrative template for the other five university sites that have joined CAFS since its interception in late 2007.

The research conducted by CAFS increases the competitiveness of forest products industries and forest landowners by solving problems on multiple temporal and spatial scales and determining fundamental solutions that transcend traditional species, regional, and disciplinary boundaries. Member organizations of the Center benefit by becoming knowledgeable about a wider range of technological capabilities. In addition, technology transfer between Center scientists and member personnel fosters rapid implementation of new technologies. The broader scientific community benefits through refereed publications and presentations at scientific meetings. During the Phase II period, graduate student training will continue to be featured in Center research and technology transfer. Aggressive recruiting for graduate students among under-represented groups will be conducted, increasing the diversity of the workforce for both academia and industry in this traditionally diversity-deficient discipline. Opportunities will continue to be sought to involve undergraduate students in Center research activities, exposing them to the excitement of forest science and encouraging them to pursue graduate education.